Doctoral Dissertation Research: Driftwood as a Resource: Modeling Fuelwood Harvesting Strategies in the Gulf of Alaska

ABSTRACT
OPP#0425349

This is a dissertation proposal to study the acquisition of driftwood as a fuel in subsistence strategies. Using archaeological evidence, contemporary and historic driftwood surveys, and ethnographic interviews the CoPI will investigate fuelwood availability and harvesting strategies in the Kodiak archipelago. In addition the researchers propose to evaluate the possible impacts of climate change, resource depression and logging, on fuelwood harvesting. In addition to the research, the project is exemplary in its inclusion of local students in the research through education projects.